U.S.-Chile Joint Workshop: The Newest in Developmental Genetics, Santiago, Chile

9813890
Schatten

This Americas Program award will support travel and related expenses for seven participants, including three US senior scientists and four US and LA post- and pre-doctoral students, to attend a workshop on the newest advances in developmental genetics, to be held in Santiago, Chile, January 11-23, 1999, in conjunction with an international symposium. Organizers are Dr. Gerald Schatten, Oregon Regional Primate Research Center, and Dr.Roberto Mayor, University of Chile. The objective of the workshop is to enhance the level of cell and developmental biology teaching and research through lectures, direct laboratory experimentation, and formal and informal discussions. Several innovative technologies, including advanced imaging, will be discussed to familiarize the participants with modern approaches for exploring structural events at the cell and molecular level.

The workshop will help foster the career development of promising students, both from the US and Latin America, and will help stimulate new collaborations among US and South American scientists.

***